Molecular Studies on Antigen Receptor Gene Recombination

During the differentiation of B and T-lymphocytes, antibody and T-cell antigen receptor genes undergo a complicated series of recombination events. All of the antigen receptor variable region genes contain a pair of highly conserved recombination signal sequences which are the targets of a site-specific recombinase. In an attempt to identify and characterize the factors involved in this recombination process, Dr. Aguilera has sought nuclear factors which might interact specifically with the recombination signals. With the use of sensitive electrophoretic assays, DNA binding factors have been identified in recombination-positive pre-B cells which bind specifically to the V-(D)-J recombination signals. The next goals of this research are: (1) To further characterize the lymphocyte nuclear factors which interact specifically with the recombination signals; (2) To continue experiments leading to the purification of these binding factors; (3) To clone and characterize the genes encoding nuclear factors which interact with the V-(D)-J recombination signals. The long term objective of this research is the characterization of the enzymatic machinery involved in antigen receptor gene recombination in cells of the immune system. These events underlie the generation of the vast diversity of specific receptor molecules that recognize and enable an individual to develop an immune response to a wide array of foreign substances.